Research on Autonomous Agents

This research is concerned with developing autonomous, cooperating, adaptive computational agents. Expected applications of this research are in the control of mobile robots capable of performing delivery, maintenance, and/or construction tasks and of agents that gather and manipulate symbolic information over comuter networks. The research will concentrate on bounded-time action computation and learning mechanisms and on combining these components in integrated agents able to function cooperatively in dynamic, uncertain environments.